ITWF: Stretching Horizons: Upward Bound Programs in Stimulating Information Technology Education and Career Aspirations among Underrepresented Minorities

ABSTRACT

Information Technology Workforce (ITWF)

Proposal Id: EIA-0120138
Investigator: Russel Stockard, Ali Akbari and Myungsook Klassen
Institution: California Lutheran U.
Title: Stretching Horizons: Upward Bound Programs in Stimulating Information Technology Education and Career Aspirations among Underrepresented Minorities

This proposal provides support for California Lutheran University to conduct a research project to examine why so few male and female African American and Latino students are studying computer science at the college level. The three cohorts, Upward Bound students, Math Upward Bound students and non-Upward Bound students, will be studied as to their experiences, opportunities, attitudes and aspirations with respect to information technology (the federally-funded Upward Bound program is made up of two different programs, the traditional Upward Bound program and the Math/Science Upward Bound program). The sites of the study are schools in the three-county Southern California region IX of Upward Bound, Los Angeles, Ventura and Orange Counties.